A Modular Approach to the Design and Operation of Chemical Plants Under Consideration of Dynamic Aspects

This research is a fundamental engineering study of the design and operation of complex chemical plants. Three areas are being investigated: the development of design strategies which considers both dynamic and economic performance characteristics, the development of decomposition criteria for complex control structures, and the development of design strategies for energy management systems which are flexible, operable, and controllable. The generation and evaluation of the large number of alternative systems which are involved is simplified by the development of performance bounds based on physical principles.